Bias, Inconsistencies, and Graphic Probabilities: An Exploration of Visual Information Processsing in Decision Making

During a 15 month period, a general framework will be developed for evaluating the effects of graphic representation of probability on the biases and inconsistencies observed in preference assessment. Development of the framework will require investigation of literature in visual information processing, cognitive modelling, and cognitive complexity. Conceptual developments from these studies will be used to design experimentation to explore the effects of graphic probability representations. The framework for modelling visual information processing and the experimental design for testing this model will be described in a full grant proposal.